Estrogen Regulation of Learning and Memory

9514816 Dohanich The neural basis for the development of learning and memory is currently unclear. However, studies have implicated the cholinergic nerve network in the brain as being an integral chemical component of the process of learning and memory. Recent investigations noted that gonadal hormones, particularly estrogen, may participate in these complex behaviors, especially during advancing age. The investigations of Dr. Dohanich will establish the linkage between these chemical messenger molecules in learning and memory across the ages. As part of these investigations, the experiments will characterize the hormonal conditions that affect performance in tasks of learning and memory, particularly following the compromise of the cholinergic system. Further innovative investigations will elucidate the interrelationship of the environment, either simple or complex, with the hormonal milieu in the development of learning and memory. Unfortunately, ample basic information regarding the complex interactions of the brain chemical messenger molecules and the environment has precluded a clear understanding of the development of learning and memory behaviors. The present investigations will foster greater understanding of these critical behaviors. Moreover, the role of the environment in learning has been proposed but critical investigations have not been undertaken. These studies will be among the first to generate quantifiable data on the role of the environment in information processing in biological systems.